Experimental and Modeling Studies of the MOVPE (MetalorganicVapor Phase Epitaxy) Process

This project addresses atomic level details of chemical reactions, transport phenomena, and epitaxial crystal growth underlying metalorganic vapor phase epitaxy(MOVPE) of advanced III-V compound semiconductor structures. Major emphasis is placed on basic studies of doping and contaminant processes for improved understanding and controllability. A systematic experimental and computer simulation approach is being taken to address these issues. Fundamental details of carbon and zinc doping of gallium arsenide during MOVPE as a function of primary epitaxy growth variables as well as mapping of doping uniformity will be carried out. MOVPE has become a premier technique for the growth of compound semiconductors, but the limited uniformity and the control of electrical properties of such material restricts the general applicability of the method and has limited its utilization for advanced electronic and optoelectronic device and circuit development. The basic studies being pursued on this project will provide additional fundamental information at the atomic level critical to the understanding and utilization of MOVPE, and thus, will have important technological benefits to the field of microelectronics as well as to our basic scientific knowledge base.